Reed College Connection to NSFNet

This award enables Reed College to attach to NSFNET through a 56,000 bit per second line to the NorthWestNet mid-level network. Access to NSFNET provides Reed faculty with increased opportunity for collaboration and improves their access to a wide range of research tools such as supercomputing and shared databases. Reed has established a local area network linking faculty and student workstations to a variety of local services including databases, compute servers, printer servers and reference materials. This NSFNET connection helps meet a long-term goal of the College, to provide access to remote services, by extending this distributed computing environment to regional and national supercomputing centers, library catalogs and reference materials of other institutions, and remote database servers.